DISSERTATION RESEARCH: Ecology and Host Affinity of Foliar Endophytic Fungi in Amazonian Trees

Plants contain a diverse array of fungi that cause no apparent harm, and may even benefit the host. These
"endophytes" are especially prevalent in tropical forests, but it is not known how many types exist, nor how
their diversity is distributed within- and between host species. This project will quantify endophyte
diversity in a lowland Amazonian tree species, and examine the relative importance of geographic distance
and habitat in determining endophyte community membership. This will be achieved using cutting-edge
DNA sequencing technology that allows direct examination of microbial communities, independent of
conventional cultivation methods.

Fungi and other microbes have immense effects on ecological processes, often resulting from their
interactions with larger organisms. In the case of endophytes, the ability of a plant to respond to its
environment may be partly mediated by its fungal partners. Because chemistry is the currency of host-symbiont
interactions, this project will reveal potential targets for drug discovery, as well as advance our
understanding of fungal species richness and ecology. During the field component, undergraduates from a
university in Amazonian Peru will receive training in ecology, plant identification, and fungal culture
techniques. An undergraduate in the United States will receive training in basic molecular methods. Results
will be published in English and Spanish, to facilitate further study by scientists from the host region and
abroad.